The Preparation and Study of Novel Receptor Systems

9224686 Thummel The focus of this research is the demonstration that carefully designed receptor systems, based on simple bridged azabiaryls and their transition metal complexes, can be employed to accomplish useful chemistry. Pyridazine based bridging ligands offer the opportunity to complex two metals such that substrate molecules in the coordination sphere of the metal can interact with one another and provide structural access to the photoredox catalyzed generation of oxygen from water. Simple and very accessible host molecules, which have been shown to be excellent urea binders, will be used to immobilize carbonic and carbamic acids to render them useful as synthetic intermediates. Carefully tailored hosts will be prepared as a urease mimic to catalyze the hydrolysis of urea and for the formation of ureaphanes. Finally, the ferrocene nucleus will be employed as a "variable hinge" in which the relative orientation of substituents on the two cyclopentadienyl rings can be controlled. %%% With this award, the Synthetic Organic Program is supporting the research of Dr. Randolph P. Thummel of the Department of Chemistry at the University of Houston. Professor Thummel will focus his work on demonstrating that carefully designed receptor systems can be employed to accomplish useful chemistry. Azabiaryl ligands and their transition metal complexes will be used to catalyze the photoredox generation of oxygen from water, to immobilize carbonic and carbamic acids to render them useful as synthetic intermediates, and to be a urease mimic to hydrolyze urea. ***